Oceanographic Instrumentation

0514602
Willis
This award to Oregon State University provides instrumentation to significantly improve the oceanographic research capabilities of the institution and the research vessel Wecoma, an NSF-owned ship operated by OSU as part of the University-National Oceanographic Laboratory System research fleet. The award supports acquisition of 1) an upgrade to the ship's data acquisition system, 2) two new fluorometers for use with the CTD system to full ocean depth, and 3) a hull-mounted, 300 kHz (high resolution) acoustic current profiler to complement the vessel's 75 kHz unit for near-surface studies. All of these are shared-use capabilities that are available to all funded users of the R/V Wecoma. These improvements will be of substantial advantage to marine scientists during 2005 and future years.
***